Statistical Methods for Integrated Gene Regulation Analyses

The fast development in statistical methodology is mostly driven by the necessity to describe, model and analyze complex large-scale data sets generated from various scientific and engineering disciplines. In order to make full use of available and incoming large amount of data in gene regulation, this proposal aims (1) to develop predictive modeling approaches to combine sequence analyses, gene expression data, and protein binding data; and (2) to develop a full Bayesian model for de novo identification of cis-regulatory modules (combinatorial patterns of multiple sequence motifs that mediate the interactions between regulatory proteins and DNA sequences) in multiple related species. For the first project, the use of many contemporary statistical learning methods is investigated, such as boosting, random forests, MARS and BART, for detecting influential sequence signals and predicting protein-DNA interactions. Multi-level models are proposed to incorporate the uncertainty in covariates into a statistical learning framework and efficient computational algorithms are developed for the inference. The statistical aspects of the second project involve modeling multiple interacting stochastic processes by coupling chains of random variables. Efficient algorithms that utilize two-dimensional dynamic programming and advanced Monte Carlo techniques such as tempering and equi-energy jumps are developed for the challenging Bayesian inference on the proposed model.

The proposed research is expected to have direct and immediate impact on various fields in molecular biology, genetics, and medical sciences, in which gene regulation analyses play critical roles. In addition to methodological development, algorithms and software will be delivered for biologists to use on their own experimental data. Many statistical components in these projects, such as the coupling of hidden Markov models and the design of advanced Monte Carlo sampling with dynamic programming, are expected to contribute significantly to statistics and other computational sciences as well.